Series of Middle & High School Student Workshops in Materials Science, to be held during the Spring and Fall MRS Conferences

This award to the Materials Research Society (MRS) will provide support for a two year series of hands on workshops aimed at middle and high school students. These workshops will be held during the spring and fall MRS conferences. The objective is to promote middle and high school students' interest in materials science while providing interaction between students and the extremely diverse group of researchers and exhibitors attending the MRS meetings. In addition, through discussions and questionnaires information concerning influences on the career choices of this age group will be collected, enabling a better understanding of the pipeline of science students in the US.
%%%
This award to the Materials Research Society (MRS) will provide support for a two year series of hands on workshops aimed at middle and high school students. These workshops will be held during the spring and fall MRS conferences. The objective is to promote middle and high school students' interest in materials science while providing interaction between students and the extremely diverse group of researchers and exhibitors attending the MRS meetings. In addition, through discussions and questionnaires information concerning influences on the career choices of this age group will be collected, enabling a better understanding of the pipeline of science students in the US.
***